Mathematical Sciences: Integral Geometry and Related Topics in Geometric Analysis

The principal investigator will continue to investigate questions of integral geometry and related problems in geometric analysis. He will investigate Radon transformations along submanifolds of symmetric spaces, finite analogues of Radon transformations, and further geometric inequalities for convex bodies and the Busemann-Petty problem. In a separate vein, he will investigate group-invariant function theory on Hermitian symmetric domains. A microcomputer will be used to perform experiments in geometric inequalities for finite Radon transformations. Convex three dimensional polyhedra include the cube, pyramid, and other classic solids of Euclidean geometry. In the theory of integral geometry, one might compute the probability that an arbitrary line in three dimensional space intersects both the origin and one of these polyhedra. Using a computer to motivate his mode of attack, the principal investigator will solve deep generalizations of such problems.